Fifth Pan American Congress of Applied Mechanics, January 2-4, 1997 at University of Puerto Rico/Mayaguez

9633005 Suarez This award is for the partial support of the Fifth Pan American Congress of Applied Mechanics to be held at the University of Puerto Rico at Mayaguez on January 2-4, 1997. Previous Congresses have been held in South American and had outstanding success. Most of the funds will l be used to support travel of the South American researchers to the Congress and for the proceedings. All areas of applied mechanics will be covered at the meeting. ***